A Novel Approach to the Optimal Design of Hybrid Waste-Recovery Processes

Hazardous-waste minimization means the reduction of hazardous waste that is generated prior to its treatment, storage or disposal. It represents an efficient method for preventing the release of hazardous substances to the environment. An effective way of tackling waste-minimization problems is through the use of on-site recycle/reuse separation networks. In addition to its favorable environmental impact, the adoption of this waste-recovery approach can provide an economically attractive waste-management alternative. It can lead to significant energy and raw-materials savings and possibly provide income from the salable wastes. With more than 250 million tons of hazardous wastes disposed of at the generating sites throughout the United States annually, the proposition of waste recycle/reuse is becoming a desirable industrial practice. The objective of this project is to devise a new methodology for the optimal design of hybrid waste-recovery networks. This task involves the development of practical tools for the systematic integration and screening of the numerous potential waste-separation systems as well as more classical ones such as distillation and mass exchange. The problem will be formulated as an optimal-network synthesis task with the objective of minimizing the total annualized cost of the system while achieving all the assigned waste-reduction duties. This formulation embeds all the potential process alternatives of interest and provides a tool for posing this design task as an optimization problem. The solution of this problem identifies the optimal combination, arrangement, types, sizes and operating conditions of the separation processes to be employed for a given waste-recovery task. This approach will be elucidated via three representative cases: the synthesis of pervaporation networks, reverse- osmosis systems, and reverse-osmosis-mass-exchange hybrid processes.